Eighth Conversation: Biomolecular Stereodynamics, June 22-26, 1993, in Albany, New York.

The Eighth Conversation in Biomolecular Stereodynamics will be held June 22-26, 1993 at the State University of New York, Albany. Young and Senior Scientists, close to 500 people from 14-15 Nations, will gather at SUNYA to discuss and debate the developing ideas and discoveries in: RNA Structure and activity Parallel DNA's and RNA's Triplexes, Quadruplexes and Chromosomal Telomeres DNA Supercoils, Chromatin Structure & Accessibility Molecular Recognition Drug & Carcinogen-DNA Complexes Molecular Mechanisms of Mutagenesis DNA Structure & Function Protein Structure & Function %%% The sessions will consist of 68 lectures and about 250 poster discussions. Of the 68 lectures, atleaset 28 of them will be delivered by outstanding women scientists.